Three-Dimensional Graphics Work-Station for Microsystems Research

A high quality three-dimensional graphics computer work station will be obtained. The work station will consist of a real-time image acquisition and a HP 9000 computer that will be housed in the Microsystems Laboratory of the University of Maryland. The image acquisition system consists of two video color cameras together with video digitizers and preprocessors. The HP 9000 computer is a 32-bit processor system supported by powerful and flexible software to accommodate diverse demands. The work station will be utilized to support the research of twelve cooperating faculty members and their students from diverse segments of the University (in the College of Engineering, the Division of Agriculture and Life Sciences, and the Medical School). The research projects include: microcomputer-based control and analysis in neural networks, intrinsic 3D curve characterizations for robots, cytoskeletal studies through computer-based feature extraction techniques, semiconductor device modeling, hysteretic semistate described systems, goal-seeking cybernetic systems, 3D solid-state device structures, control of large interconnections of robots, real-time and distributed program systems, repetitive adjustment technique for robot control, robot component fracturing, and CAD of microwave amplifiers.